Coordinated, Innovative Designs for Innovative International Information Communication Technology Assessment in Science and Mathematics Education

This project would develop an assessment framework and performance assessment practices after an analysis of frameworks from many countries for the purpose of assessing Information Communication Technology (ICT) as it is used in elementary and secondary schools. The project would identify issues of large-scale implementation of performance assessments in information technology and develop performance assessment scenarios and specifications. Moreover, the project would develop performance assessment tasks and test them in 4 countries and develop administrative and training manuals. The results of this project would be used in an international studies called the Second International Technology in Education Study (SITES) sponsored